ASPIRA Mathematics and Science Planning Grant

The ASPIRA Association, Inc., proposes to develop a national applicable model of community-based model to increase the number of Latino middle-school youths with adequate preparation in math and science education. Latino community-based organizations are uniquely capable of reaching youth that are often difficult to reach by non-Latino organizations. The importance of out-of-school informal science experiences for young people to reinforce their interest in science and mathematics is of interest to the National Science Foundation, and to the ASPIRA Association. However, not enough is known about what works in informal science in the Latino community and with the Latino students. The ASPIRA Association is requesting support from the National Science Foundation to undertake a project to answer the following question: How can informal science programs have a greater impact on Latino middle school youth in science and mathematics? The perceived benefits of the project are: Identification of exemplary informal science education efforts undertaken by organizations in working with Latino youths. Identification of effective curriculum models in informal science education for reaching Latino youths. Identification of characteristics of successful programs. Encouraging partnerships among CBOs, educators, schools and family. Identification of supplemental resources for supporting informal science education programs. ASPIRA is the only national nonprofit organization devoted to serving Puerto Rican and other Latino youth through leadership development and education. With a thirty-one year old track record of proven effectiveness, ASPIRA's work with Latino youths is based on the belief that all youths can succeed.